Student Travel Support for the 2013 International Symposium on Computer Architecture (ISCA-40)

The International Symposium on Computer Architecture (ISCA) is a premier forum for presenting, discussing
and debating new and innovative architectural ideas and techniques for advanced computing and
communication systems. This symposium brings together researchers in fields related to processor architecture,
compilers, chips, and systems. This proposal aims to support this highly regarded conference by
obtaining travel support for students in order to defray the costs of attending and participating in the ISCA
conference in June, 2013 in Tel Aviv, Israel. Priority will be given to US
citizens and permanent residents, students from under-represented groups, and students
that will be presenting their research at ISCA or its joint workshops.
The ISCA conference will be strengthened as a
result of the greater attendance that this travel support will enable. Students receiving travel
support will personally benefit from the opportunity to interact with peers and experts, as well as establish
connections that will help their professional careers.
More broadly, we expect additional indirect impacts. First, we plan to widely advertise the available
support in order to attract women and under-represented minority groups (through postings on computer
architecture web-sites and mailing lists). Second, by focusing on students, the grant will help foster the
mentoring of subsequent generations of computer architects.